NEDG: Next-Generation Long-Reach Broadband Access Networks

Our society is increasingly dependent on the Internet for instant access
to information. Broadband access can have a very strong positive impact
on society. The US is lagging behind in providing inexpensive broadband
access to its citizens. Research is needed to develop next-generation
broadband access technologies which will lead to new competitive services
and applications. Novelty: This project is creating new knowledge on the
design, deployment, and operation of the novel Long-Reach Broadband Access
Network (LR-BAN) architecture, resource-allocation algorithms, and network
evolution to accommodate traffic growth. Broader Impact: This project is
enabling US researchers to lead the development of next-generation Broadband
Access Networks. This comprehensive and integrated research and education
project should enhance our nation's educational infrastructure through
student training and influence the US telecom industry with its findings.

Specifically, this project is investigating novel network architectures,
protocols, and algorithms to design and efficiently operate next-generation
broadband access networks that can provide extended coverage across local
and metropolitan regions in telecom networks. The project is developing
efficient methods for extending the coverage of today’s Fiber-to-the-Home
(FTTH) networks from their 20-km limit to 100 km and beyond by exploiting
wavelength-division multiplexing passive optical networks (WDM-PONs) to
serve a large user base, leading to the Long-Reach Broadband Access Network
(LR-BAN). The LR-BAN architecture can effectively decrease the number of
Central Offices in a telecom operator's network and reduce its Operational
Expenditure. This project is investigating various LR-BAN architectural
options (such as “ring-and-spur” architecture); methods to flexibly allocate
bandwidth on demand to users with a diverse set of requirements (such as
“multi-thread polling”); and methods to evolve the network toward future
reliable broadband applications and technologies.